NER: Nanoengineering and Characterization of Electrospun Collagen Matrix

0210365
Jun
This proposal was received in response to the Nanoscale Science and Engineering Initiative NSF 01-157, category NER.

The main objective of this research is the optical and mechanical characterization of the
nanoengineered collagen tissues produced by a novel electrospinning technique
developed at the Virginia Commonwealth University. The prospect of using a person's
own cells (keratocytes) as a vehicle for development of a new cornea will also be
investigated by culturing corneal cells in the engineered collagen matrix.